Investigations of Anomalous Energetics in the Mid-Latitude E-Region

This award provides funds for a three-year research program under which basic plasma physical processes that appear to be responsible for the surprisingly strong energetics that have been observed in the midlatitude E region will be studied. The experiments will center around measurements to be made with a frequency-agile radar (FAR), with plans to culminate this research program with a second SEEK rocket campaign (SEEK-2) in 2001. The first ground-based investigations of the electron heating events mentioned above will be pursued. Thus far, this phenomenon has been detected only by a handful of sounding rockets launched over a 20 year period. From these measurements a comprehensive description of the Sq current system and the conditions under which electron heating events are observed will become evident.